Collaborative Research: Ocean Tracks: Investigating Marine Migrations in a Changing Ocean

Ocean Tracks: Investigating Marine Migrations in a Changing Ocean, a collaboration between Education Development Center, Inc. (EDC), and Stanford University's Hopkins Marine Station, is developing a unique model of how to enable high school students to use authentic scientific data via an interactive Web-interface. Ocean Tracks is developing and classroom testing powerful Web-based visualization and analysis tools derived from state-of-the-art knowledge about how to support student inquiry with data. An interactive website provides access to near-real-time and archival data from electronically tagged marine animals, drifting buoys, and Earth-orbiting satellites collected through the Global Tagging of Pelagic Predators, National Oceanic and Atmospheric Administration's (NOAA) Adopt-a-Drifter, and MY NASA DATA programs. Powerful Web-based visualization and analysis tools, derived from state-of-the-art knowledge about how to support student inquiry with data, allow students to learn and apply core concepts in ecology, biology, environmental science, earth science, oceanography, and climate science.

Concurrently, agencies such as the NSF, NOAA, and NASA are making significant investments in sophisticated cyberinfrastructures (CI) that will make available a treasure trove of scientific data via the Internet to scientists and educators; there is tremendous potential for this data to transform teaching and learning by engaging students in authentic scientific work. However, modifying expert-data interfaces for use by students and supporting students as they engage in scientific inquiry with data are significant challenges. There is an urgent need for model programs such as Ocean Tracks that instantiate the best knowledge of experienced educators and education researchers, practicing scientists, and technology experts. Ocean Tracks harnesses the promise of emerging CI to engage high school students in the use of data visualization tools to study the movement patterns and habitat usage of marine animals (e.g., sharks, tunas, turtles, seals, and seabirds) in relation to oceanographic variables (e.g., sea surface temperature, chlorophyll, and current speed and direction). The knowledge gained from Ocean Tracks will have broad impact by serving as a model for designing and implementing projects in which students, teachers, and scientists collaborate to conduct scientific research, even in classrooms that are far from the ocean and scientists' laboratories.